A Workshop to Study Peaceful Coexistence in the Unlicensed National Information Infrastructure; June 21-23, l998; Long Branch, New Jersey

9814104 The Federal Communications Commission recently allocated three 100 MHz bands of radio spectrum for the Unlicensed National Information Infrastructure (U-NII), with only minimal controls on radio emissions. This unprecedented release of unlicensed spectrum provides fertile ground for technical research on coexisting systems in a wireless "ecology" and raises interesting policy issues which must be addressed if the U-NII is to become all it's envisioned to be. The WINLAB Focus '98 on the U-NII is to provide a forum for discussion of a broad U-NII research agenda for both technologists and policy makers. It is also intended to provide an introduction to those with an interest in this new and exciting field.***